SBIR Phase I: Durable Super-Hydrophobic Nano-Composites

This Small Business Innovation Research Phase I Project is to develop a mechanically durable, conformal, super-hydrophobic coating that is applied through an innovative dry coating process. The nanocomposite coating will be optimized to improve its mechanical durability.

Successful development of this coating technology could lead to protection of consumer electronic devices from immersion in fluids.

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).